Graduate Research Traineeship Program

This project will support five graduate research traineeships over a five year period in the School of Electrical Engineering and Computer Science at the Center for Advanced Technology in Telecommunications (CATT) of the Polytechnic University. The specific areas to be addressed are as follows; high speed networks, signal processing, and software producibility. The traineeships will be used to attract more women and underrepresented minorities into doctoral studies in this field.